Exploratory Research: Demographic and Agrarian Reconnaissance of Buenos Airs Costa Rica

Gage 9311540 Tropical forest destruction and ecosystem degradation due to human modification of the environment is ultimately a function of population size and growth. However, the rates of environmental degradation, and tropical deforestation in particular, are mediated by prevailing land use and land tenure systems. This pilot project for a long term multidisciplinary and multifaceted study will investigate the factors that underlie tropical deforestation in the rural township of Buenos Aires, Costa Rica. The objectives of the current pilot project are two-fold: 1) to evaluate the utility of the data currently collected by the C.R. Ministry of Health and those housed in local health clinics, and 2) to collect preliminary data concerning the agricultural economics and ecology of the region. The general goal is to collect the background information necessary to develop a more extensive project concerning the interrelationships of ecology, micro-demography, agricultural economics, and tropical deforestation in detail. ical deforestation in detail. *** P\anthro\jfried\9311540.abs e u ~ e exit ra ! ! ! D ( Times New Roman Symbol & Arial " h R `S ^S O : Jonathan Friedlaender DEBRA TERESA WHITE